The Ahlfors-Bers Colloquium

Abstract Kra/Maskit This award is to partially support the Ahlfors-Bers Colloquium to be held November 6-8, 1998 at the State University of New York at Stony Brook. The focus of the Colloquium will be on Ahlfors' work, and its importance and influence on future developments; and on Teichmuller theory and Kleinian groups.